Mathematical Sciences: Workshop: Statistical Physics Methods in Discrete Probability, Combinatorics and Theoretical Computer Science

9617148 Roberts This award provides funds to partially support the five day workshop, "Statistical Physics Methods in Discrete Probability, Combinatorics, and Theoretical Computer Science" to be held March 23-27, 1997 at the Institute for Advanced Study in Princeton. The goal of the workshop is to bring together researchers working at the interface of statistical physics, probability, combinatorics and theoretical computer science with the intention of developing a common language and recognizing parallels among the fundamental problems being addressed in these disciplines. There will be several introductory lectures surveying some of the major themes of the workshop. In addition, there will be more advanced lectures giving junior and senior researchers opportunities to present recent results. There will be ample time for discussion of open problems.